A Net-Centric Undergraduate Course in Adaptive Systems

The goal of this CRCD project at the University of Florida, entitled, "A Net-Centric Undergraduate Course in Adaptive Systems," is to innovate the engineering undergraduate curriculum by developing a net-centric, WEB based upper division elective on Adaptive Systems. The ultimate goal is to establish a resource center for Adaptive Systems undergraduate instruction at the University of Florida which will integrate collaborations from experts worldwide and will deliver the course locally and distribute it across the WEB to learners at other Universities and in Industry. The software tools and the teaching methodologies developed during this project will be widely applicable to other technological courses, so they transcend the specific area of Adaptive Systems.